AAS Town Hall on the NSF Senior Review of the Astronomical Sciences Division - Washington DC - 16 February 2007

The American Astronomical Society will hold a Town Hall Meeting on 16 February 2007 to provide a forum for the astronomical community located in the Washington, DC area. The Town Hall will be focused on presenting the recommendations and findings of the report of the Senior Review of the Division of Astronomical Sciences and providing the community an opportunity to discuss its results and provide input to the formulation of an implementation plan.